Dynamics of the Dayside Magnetosphere

Previous work on this grant has concentrated on the dynamics of the dayside magnetosphere as determined from plasma measurements made on the Dynamics Explorer 1 spacecraft. The area of prime emphasis in this research has been the injection of solar-wind plasma through the polar cusp and its subsequent transport within the magnetosphere. The new work will continue to focus on this area primarily using data from the Dynamics Explorer 1 spacecraft, but with correlative data from Isee-1, Isee-3, AMPTE, EISCAT, and ground stations in Antarctica, Alaska, and Scandinavia. In addition, significant effort will go toward the study of the mapping of the low-latitude boundary layer to midaltitudes and of the dayside parallel and transverse acceleration of ions and electrons. An important new phenomenon, the flux transfer event (FTE) will be introduced in studying the interactions of the magnetosheath with the ionosphere. Midaltitude signatures of FTE's, called reconnected flux tubes (RFT's), will be correlated with magnetopause FTE's and ground signatures of FTE effects in the ionosphere. Confirmation of ground signatures of FTE's under the polar cusps will make available a vast set of FTE observations that can be used to study the behavior of flows in the low-latitude boundary layer. The importance of this work resides in the recognition that FTE's represent a major source of magnetic energy for the magnetosphere. Spacecraft data have been used to identify FTE's and now this work will use ground based data to investigate ionosphere signatures. This is one of the objectives of Geospace Environment Modelling (GEM) and, therefore, this work can be regarded as a forerunner to GEM.